Tenth Conference on the Application of Accelerators in Research and Industry; Denton, Texas; November 7-9, 1988 (Physics)

This grant will provide partial support for a conference, to be held November 7-9, 1988 in Denton, Texas, on the Application of Accelerators in Research and Industry. The conference is designed to review current and planned industrial applications of accelerator developments and emphasizes the many connections between basic accelerator research and applications.